Stellar and Solar Magnetic Activity Cycles

The PIs will study solar and stellar magnetic cycles and chromospheric activity using a dedicated fiber-fed spectrograph facility at Lowell Observatory. The goals of this research will (1) discern the nature and relative importance of three effects which produce observed solar and stellar variability, i.e., the long-term activity cycle, rotational modulation, and short-term stochastic variability; (2) infer the time history of cyclic behavior for a star like the Sun over its entire lifetime, including information about the statistical frequency of major departures from "normal" behavior; (3) obtain a broad perspective on the total ensemble of stellar cycles possible, thus gaining insight into the nature of stellar dynamos and the effect of stellar magnetism on the radiative output from the stellar envelope.